Mathematics and Engineering Scholarships

Scholarships are being granted to academically talented, low-income students as they seek to complete their degrees in mathematics, computer science or engineering. Scholarship recipients have access to an extensive academic support infrastructure that includes faculty mentoring, opportunities for cooperative education, seminars on topics in mathematics and engineering, workshops on career preparation, and advising on graduate education. Part-time employment on campus as tutors is available for juniors and seniors.